CISE Research Resources: Acquisition of a Computing Cluster and Access Grid Node for Information Technology Research

EIA-0130673
Xian-He Sun
Illinois Institute of Technology

CISE Research Resources: Acquisition of a Computing Cluster and Access Grid Node for Information Technology Research

The Department of Computer Science at the Illinois Institute of Technology (IIT) will purchase an 82 node Linux cluster, an Access Grid node, and several workstations, all of which will be connected via a high-speed network. These computational resources will be dedicated to the support of several on-going research projects in the area of information technology. Such projects include the development of a process migration environment for heterogeneous distributed computing, design and implementation of scalable information systems, scalable distributed simulation in support of complex systems management, and scalable parallel numerical algorithms and simulations. These projects require significant computing power and high-performance networks. Such resources are not currently available within the university. The acquisition of these resources through the NSF CISE Instrumentation program is critical to the success of these research projects, and to the development of a strong computer science program at IIT. Additionally, the requested equipment will offer an excellent platform upon which students can learn about and experience state-of-the-art research via course work and term projects.